Estimation of a Model of Community Choice and Public Goods Provision in System of Local Jurisdictions

This research investigates a setting in which individuals are mobile among many localities or jurisdictions. In this setting, collective decisions determine tax and spending levels within jurisdictions. Individuals determine the jurisdiction in which they will reside and the amount of housing and other private goods they will consume. Under previous NSF grants, the investigators developed and analyzed fully articulated equilibrium models of these individual and collective decisions and used these models to study a variety of issues related to residential choice, housing prices, local government taxation and spending decisions, redistribution, and land use restrictions. This work defined the state of theoretical research on the political economy of local government, but although the investigators have used the models for numerical simulations with the parameters of the model set to empirically plausible magnitudes, no one has yet succeeded in directly estimating or testing these models. The contribution of this next phase of the project will be to test whether a fully articulated theory of community choice is consistent with the data. This project develops an empirically tractable framework that captures locational and collective goods equilibrium in a multicommunity setting. It estimates the parameters of this model using data from U.S. metropolitan areas. The estimates provide the basis for predicting the distribution of households by income across communities, given the levels of public goods provision across communities. In addition, the estimates provide predictions about the distribution of publicly provided goods across communities.